High Energy Physics Research

This award will provide funds for three faculty, two research associates, three graduate students and three undergraduate assistants to continue their research in elementary particle physics at the Fermilab proton-antiproton Tevatron collider, the world highest energy colliding beam facility presently available. The principal experimental effort of the Michigan State University group involves collaboration on the construction and operation of a new large calorimeter for the D0 detector (experiment E740). The group has designed and is producing the charge readout system of the calorimeter. It also has the responsibility for development of the calorimeter on-line software and to perform the off-line analysis and extraction of physics results for the first run of the D0 experiment. The proposed experiment seeks to understand the nature of the elementary constituents of matter. Particular emphasis will be on hard scattering processes at high energies especially lepton production in hadronic collisions and production of particles with high transverse momenta. This field has been very rich in recent years resulting in much new information on the type of elementary constituents (quarks and gluons) and on the nature of their interaction.